An Undergraduate Electrical Machines Laboratory.

This project will improve the quality of instruction in electromechanical device application, control and design. Seven Hampden machine stations will be added to the laboratory which presently supports three machine oriented courses. Included will be AC and DC variable powers sources, dynamometers, instrumentation and three phase and single phase machines which represent the basic machine types in general use today. This laboratory will form the basis of future control systems and special motor experiments.